IPSSAS Seminar 2005 - International PhD School for Studies of Arctic Societies

ABSTRACT

This workshop is the third International PhD School for Studies of Arctic Societies to be held June 2005 at the University of Alaska. The 10 day workshop is an opportunity for students doing research in Arctic social sciences to exchange ideas with faculty and each other on Northern research. Students will make formal presentations that will be critiqued by their peers and faculty members. This is a unique opportunity to build an international cohort of colleagues among young Arctic scholars.